Co-editor of "NSF Highlights" Column Published in The Journal of Chemical Education

The "NSF Highlights" column is published monthly in The Journal of Chemical Education and serves to disseminate information about projects funded by the Division of Undergraduate Education of the National Science Foundation, improve the understanding of programs at the National Science Foundation, and encourage submission of proposals to programs at the National Science Foundation. This project involves the editing of the "NSF Highlights" column, and travel by the co-editor to the American Chemical Society national meetings to allow him to interact with the chemistry community and to note changes in the state of undergraduate education in chemistry.